Acquisition of Electronic Instrumentation for NanoScience Research and Education

The NanoScience and Technology Center of the University of Notre Dame is
creating a NanoScience Measurements Laboratory to provide state-of-the-art
instrumentation for the characterization of the electronic properties of
nanoelectronic, nanomechanical, molecular, and superconducting materials
and devices, as well as state-of-the art semiconductor devices and
circuits. This major research instrumentation grant will be located in the
College of Engineering and support research and teaching across the
university including the departments of Electrical Engineering, Chemical
Engineering, Computer Science and Engineering, Chemistry and Biochemistry,
and Physics.

The instrumentation purchased will provide precision current-voltage and
impedance measurements from dc to 110 MHz, 300 mW to 500 MW, with
triaxially-guarded cabling and low current and voltage resolution (10 fA
and 2 mV). Ease of use and rapid sample exchange will be enabled by use of
a Cascade thermal probe station which handles samples from centimeter-sized
pieces to 8-inch wafers and with a temperature-controlled chuck (- 65 to
200 C). A computer provides for data acquisition, instrument control, and
storage. This system will benefit users across the University of Notre Dame
including undergraduates, graduate students, and faculty. External use and
collaborations will be encouraged.